EAGER: Transcriptome analysis of CHO cells to improve productivity and control protein aggregation

1218345
Harcum

Chinese hamster ovary cells (CHO cells) are used to manufacture a majority of the therapeutic
proteins on the market today. In particular, CHO cells are able to express recombinant
glycoproteins, including monoclonal antibodies, which require complex post-translational
modifications. Even though CHO cells have become the new "Escherichia coli" workhorse cell
line, there are still many engineering challenges that must be addressed. These challenges can
be calculated when assessing the cost to consumers of glycoprotein therapeutics ($10's to
$1000's of dollars (US) per milligram with typical doses of 10's of milligrams).

One major production challenge for glycoproteins is protein aggregation. Glycoproteins are
prone to aggregation due to the size of these molecules, incomplete glycosylation, high
synthesis rates, and free thiols. Fortunately, bioprocess engineers have discovered interim
solutions, such as, media additives that can reduce protein aggregation in CHO cell cultures,
but more efficient long-term solutions are necessary to stabilize production and reduce costs.

The overall goal of this research project is to develop and enhance the toolbox for better
understanding protein aggregation beginning with gene expression. Factors that lead to protein
aggregation and conditions that reduce protein aggregation will be investigated by interrogating
the transcriptome profiles developed from the transcriptome-sequencing component of this
project. The CHO cell transcriptome will be made publicly available and characterized to
promote genome-wide research in CHO cells. Transcriptome analysis will be used to identify
genes that affect and respond to protein aggregation.

This project will provide a strong conceptual route for increasing the availability of therapeutic
proteins and glycoproteins to the public. The availability of this additional high quality CHO cell
transcriptome data to the public will allow for a commensurate community knowledge base that
will enable all scholars the ability to contribute to our understanding of bioreactor process effects
on this host cell line. Broader impacts also include the establishment and maintenance of a
pipeline of educated, motivated students, particularly those from under-represented minority
populations to undertake careers in biotechnology to meet this growing demand in the US.